Modernization of General Physics Lab Instruction

This award is made as part of the Instrumentation and Laboratory Improvement Program. This Program funds innovative new projects for undergraduate physics laboratories. This action will supply equipment principally focussed on computer- oriented data collection and processing and on the introduction of several experiments elucidating key principles of physics.